III: Small: Integrating Casual Discovery and Feature Selection with Streaming Features

With the advent of emerging massive datasets in image processing,
biology, finance, and so on, traditional data mining systems
face new challenges to induce knowledge and discover causal
relations in dynamic streaming feature environments, where new
features continuously stream in over time. These challenges include
(1) continuous growth of feature volumes over time, (2) a huge feature
space, even of unknown or infinite size, and (3) not all features
being available before learning begins. These challenges call for a
new learning paradigm with continuously increasing features. In this
project, we take the increasing feature volumes as streaming features,
and the corresponding learning problem is referred to as Online
Learning with Streaming Features (OLSF). Since existing online
learning efforts mostly deal with data with increasing observations
but fixed feature dimensions, OLSF provides a unique chance to unfold
and characterize pattern trends for dynamic systems with streaming
features.

This project aims to address two fundamental issues for OLSF: (1)
causal discovery with sequentially increasing feature dimensions; and
(2) causal relations for feature selection. We design novel methods
and algorithms for causal discovery in OLSF and establish formal connections
between casual discovery and feature selection by investigating the
mutual benefits between them in the context of online stream feature
learning. To evaluate the proposed research, we conduct empirical
studies on a large body of benchmark datasets, as well as with a
domain-specific real-world case study in personalized news filtering
and summarization where the feature space changes over time. The
new algorithms and techniques in this project will advance our ability
to discover knowledge from dynamic systems using streaming features
with bounded resources. The spectrum of the methods from the project
will not only enrich our knowledge and understanding of pattern
discovery and machine learning for dynamic systems, but also provide a
new view to capture and characterize dynamic systems from a streaming
feature perspective.